Presidential Young Investigator Award

Concentrated effort is directed toward research in positron emission tomography (PET) and toward the technical aspects of beginning a new PET center. Current research includes attenuation correction for PET using reprojection, maximum likelihood reconstruction, a detailed quality assurance program for PET using advanced statistical techniques, and noise correlation and specification for tomographic imaging. Attention is focused on nuclear magnetic resonance (NMR) imaging, including the development of physiological contrast agents and optimization of pulse sequences for different imaging requirements.